Travel for 2016 IEEE Thirteenth International Conference on Mobile Ad hoc and Sensor Systems (MASS-2016)

Recent research on wireless networks and mobile computing has concentrated on single hop networks, where network nodes communicating directly to a fixed infrastructure such as cellular or satellite systems. In ad-hoc and sensor networks, multi-hop scenarios such as conference, hospital, battlefield, rescue and monitoring scenarios are covered, where network nodes communicate via other network nodes. Looking at the increasing importance of this area, IEEE MASS is being organized. The thirteenth meeting is planned for October 10-13, 2016 in Brasilia, Brazil.

This project supports travel to the IEEE MASS 2016 conference for US based Ph.D. students who might not otherwise be able to attend for financial reasons. Students will be exposed to the conference, a technical forum that is critical for their professional maturity and development. The recipients will be chosen by a committee of four senior researchers and preference will be given to students from underrepresented groups.